Carbonate Ramp Deposition in the Northern Bahamas: An Actualistic Approach

The northern Great Bahama Bank "ramp" will be studied using high- resolution seismic profiles to locate rock and sediment cores to document the sea-level rise and carbonate cycle evolution on a carbonate ramp and thereby be extended to interpretative models for ancient analogs.